Process Control, Diagnostics, and Modeling in Semiconductor Manufacturing I (Symposium to be held in Reno, NE, May 2l-26, l995)

9521742 Meyyappan The funds provided will be used to support travel costs incurred by graduate students attending the First Symposium on Process Control, Diagnostics and Modeling in Semiconductor Manufacturing, a symposium dedicated to recent developments in the field of micoelectronic manufacturing. ***